The Behavior of C-O-H-NaCl Fluids Determined from Synthetic Fluid Inclusions

9405629 Lamb This research will investigate the behavior of fluids in the system H2O-CO2-CH4-NaCl in the range 400-750 oC and 0.5- 2.0 kb. The ternary subsystems will have priority for study before research on the quaternary system is initiated. The experiments will utilize synthetically produced fluid inclusion to trap samples of fluids at controlled temperatures and pressures. The ultimate objective is to arrive at an empirical relationship from which the molar volume of a fluid can be predicted for specified P-T-X conditions. The results will ultimately find application in studies of the formation and evolution of many base and precious metal ore deposits, the development of metamorphic mineral assemblages and the transfer of heat during metamorphism, igneous processes such as partial metling, and diagenesis.